High Energy Physics

9413105 Kreisler This proposal requests three years of support for 2 faculty members, 1 postdoctoral fellow and 2 graduate students to continue the analysis of massive quantities of data accumulated in studies of hyperon and heavy quark production in nucleon- nucleon scattering at Brookhaven (BNL E766) and Fermilab (FNAL E690). These data were taken in 1986 and 1992 respectively. The PI spent years developing and using the advanced electronic processors which allowed the collaboration to take and process nearly 1010 events. They have recently finished studies of the Lambda and Anti-lambda masses which have become the world standard and an analysis of pion-pion correlations with sufficient statistics to measure both the Bose statistical effects and the coulomb interaction. In the next grant period they will concentrate on measuring hyperon polarization and light meson spectroscopy. They are exploring future applications of their data driven processors in experiments at the DESY laboratory in Hamburg, Germany and at the CERN laboratory in Geneva, Switzerland. ***